Design and Manufacturing Systems Grantees Conference; Tempe, Arizona; January 8-12, 1990

This award supports the 16th Annual NSF Grantee's Conference on Manufacturing Systems Research at the Arizona State University College of Engineering and Applied Sciences. The five day conference will provide an opportunity for grantees and other invited guests to exchange ideas and research results with the aim of enhancing the overall research effort, reducing duplication and encouraging cooperation among the participants. The conference dates are January 8-12, 1990.//